Summer Program in Solid State Chemistry for Undergraduate Students and College Faculty

9803995 Thompson This summer program in solid state chemistry for undergraduate students and college faculty will provide an interdisciplinary forum for learning about recent advances in the area of solid- state chemistry which will include the impact of materials synthesis, development and application, and direct research experience in selected solid-state chemical areas. Integrating the concepts and techniques of solid-state chemistry with the well established and full curriculum of chemistry based upon molecular concepts will continue to be a goal of the solid-state chemistry summer program. Selected students and teachers will be offered opportunities to interact with internationally known solid state chemists from various universities and industries through a program of tutorials, site-visits, and summer research. They will devote the summer period to tutorials on solid state chemistry, and research on individual projects will be conducted by the participants in university and industrial laboratories across the U.S. The results of these efforts will be presented by each participant in a final symposium. %%% The scope and importance of solid-state chemistry is increasingly recognized among students, university faculty and industrial scientists not only because of the discovery of new classes of materials of high technological relevance, but also because of a deeper fundamental understanding of the diverse properties of solids that is made possible by the availability modern techniques. Contributions to solid-state chemistry are now made by researchers active in multidisciplinary areas of research that include materials science and engineering, chemistry, chemical engineering, physics, and mineralogy/geology. ***